Aspects of Nonlinear Hamiltonian PDE

DMS-9801013 Jean Bourgain ABSTRACT Aspects of nonlinear Hamiltonian PDE's J. Bourgain 1. The PI intend to continue research on several aspects of nonlinear Hamiltonian PDE's. A first line of investigation is the KAM-theory for PDE's (on bounded domains - assuming periodic boundary conditions say), concerned with existence and persistency of time periodic and quasi-periodic solutions. A second theme is the wellposedness theory for the initial value problem with special emphasis on critical nonlinearity and data of minimal regularity. The first research direction is closely related to the theory of smooth dynamical systems (here in infinite dimensional phase space) and localization theory for lattice Schrodinger operators. There has been a substantial technological progress over the recent years leading also to results in higher space dimension (D > 2), for instance in the construction of time-periodic solutions and quasi-periodic solutions for 2D NLS. But these developments are still in an initial stage and a lot of challenging work needs to be done involving mainly so-called "small-dimension" questions. The second direction aims to exploit recent advances in Harmonic Analysis And its interplay with conservation laws and apriori inequalities, in order to progress on some of the remaining open problems on the Cauchy problem for certain nonlinear Schrodinger equations for instance, with critical nonlinearity. A typical issue are the global wellposedness questions in the defocusing case for large data. 2. Nonlinear Hamiltonian PDE's such as the nonlinear wave equations (NLW) and nonlinear Schrodinger equations (NLS) are mathematical models in a number of issues in physics and engineering. They are studied by many distinct groups of scientists, with different emphasis and often different (mathematical) tools. My interest in this proposal is an analytically purely rigorous inv estigation. From this point of view NLW (resp, NLS) are the typical model equations for finite (resp. infinite) speed propagation. When considering questions of global dynamics, one should distinguish the case of bounded and unbounded spatial domains where different features should be expected and the "natural" problems (often unsolved) are also distinct. Of course, a first question to ask is whether the solution exists for all time and remains smooth in case of smooth data. Next is the question of long time behaviour, both for individual data and the dynamics in various phase space. In the case of bounded domains, we are particularly interested in almost periodic behaviour. On the line, due to dispersion, scattering often occurs and we intend to investigate this phenomenon in certain critical cases.